CSEDI: Whole-Mantle Convection and the Transition-Zone Water Filter

A major question about the Earth's interior is why the mantle appears
both well-mixed and unmixed at the same time. Geochemical analyses imply
that the two main types of mantle convective upwellings (which create
mid-ocean ridge basalts MORB and ocean-island basalts OIB, respectively)
have distinct chemical signatures and thus come from different isolated
layers in the mantle. However, seismological studies suggest that
cold downwellings (called subducting slabs) sink across the entire
mantle and would therefore stir the mantle and destroy any layering.
Thus there appears to be completely contradictory pieces of evidence
of how the mantle convects. However, it has been recently suggested
that melting at 410 km depth in the mantle can act as a filter that
sequesters incompatible elements into the deep (sub-410km) mantle, but
allows whole-mantle circulation of major components, thereby satisfying
both geochemical and geophysical constraints. As most of the ambient
upwelling mantle rises out of the high-water-solubility transition
zone into the low-solubility upper mantle above 410km, it becomes
water-supersaturated and undergoes dehydration melting that filters
out incompatible elements. The filtered solid phase supplies dry,
depleted materials to the MORB source region. The filter, however,
is suppressed for hotter, faster mantle plumes which therefore deliver
enriched OIBs. This "water-filter" model raises many new questions: (1)
What is the predicted structure of the putative melt layer at the 410km,
and how can this be tested seismologically? (2) What is the influence
of the filter mechanism on mantle convection and chemical circulation?
(3) What is the nature of hydrous melt at deep upper-mantle conditions?
Answering these and a host of other important new questions demands an
interdisciplinary approach and therefore involves a team comprised of
a geodynamicist, an experimental mineral physicist, a seismologist and
a geochemist.

Broader impact:

This project involves the education of two graduate students in a highly
interdisciplinary project entailing geodynamics, mineral physics,
seismology and geochemistry. The water-filter model also raises new
questions and fields of research that will drive interaction between
disciplines and provide focus and hypothesis-testing for the larger
observational and experimental programs such as EarthScope, OMD (Ocean
Mantle Dynamics) and COMPRES.